International Conference on Mathematical and Theoretical Biology

Mogilner
0107388
Mathematical and theoretical biology is a vital and rapidly
growing subject that complements empirical work and provides
model systems for study and manipulation. Such model systems can
sometime suggest shortcuts when the experimetal work is
difficult. More often, the models provide novel tools to disect
complex biological phenomena in addition to traditional
techniques. The current challenge in the field is to make
quantitative modeling, on the one hand, a part of the process of
fundamental biological discovery, and, on the other hand,
applicable in biomedical and biotechnological situations. This
requires researchers with biological skills and mathematical
insight and facility. At this time such individuals are rare.
The investigator and his colleagues organize an International
Conference on Mathematical and Theoretical Biology at Hilo,
Hawaii on July 15--19, 2001. The goals of the meeting are to
highlight current top-level research, to provide a perspective on
future research areas, to provide opportunities for career
development to junior researchers and underrepresented categories
of researchers, to foster interactions between established
researchers and junior researchers and between theorists and
experimentalists. The meeting highlights exciting traditional
and new areas of rapid growth in mathematical biology, such as
theoretical ecology and evolution, quantitative cell biology,
proteomics, mathematical modeling in medicine and mathematical
physiology and immunology. Plenary speakers both give a broad
overview of their field and focus on areas for future research.
Additional contributed and poster sessions are organized to give
junior researchers the chance to be heard.
Mathematical and theoretical biology is a young
interdisciplinary field of science that provides quantitative
models in biology. These models provide novel tools to disect
complex biological phenomena. The current challenge in the field
is to train researchers with biological skills and mathematical
insight and facility. The conference helps to highlight current
top-level research and provides opportunities for career
development to junior researchers and underrepresented categories
of researchers.